The Development of a Computer-Enhanced Mathematics Lab for Calculus Students

Students are benefiting from a calculus curriculum enriched by the integration of computers into instruction. A classroom- laboratory is equipped with IBM compatible machines and software with graphing and symbol manipulating capabilities that allow simulations and demonstrations. Students see calculus in action and can devote more time to the analysis and synthesis of new ideas. The institution will provide funds to match this grant.